Heavy Atom Isotope Effect Studies of Organic Reaction Mechanisms

In this project ("Heavy Atom Isotope Effect Studies of Organic Reaction Mechanisms") in the Organic Chemical Dynamics Program of the Chemistry Division, Professor Arthur Fry in the Chemistry Department at the University of Arkansas, Fayetteville, will study kinetic isotope effects in order to determine the details of the paths (mechanisms) by which molecules react. This research project utilizes heavy atom isotope effect studies in determining mechanistic details for a variety of addition and elimination reactions. Specific reaction systems on which carbon-14 isotope effect measurements and calculations are being made are the Hofmann and Cope Elimination reactions, the solvolysis of substituted alpha-phenylethyl compounds, the decomposition of brominated cinnamic acids, the addition of arenesulfenyl chlorides to phenylethenes, and the addition of dibromine to 1,2-diphenylethenes, cinnamic acid esters, and phenylethynes. Correlation of experimentally measured and theoretically calculated isotope effects will be used to determine details of transition state structure, motion through the transition state, and the timing of bonding changes in chemical reactions.